Genetic Analysis of Type II Calmodulin-Dependent Protein Kinase in Drosophila

Protein kinases are an important class of regulatory enzymes in all cells but are particularly important in the nervous system. When these enzymes are activated within cells in response to extracellular signals, they transfer phosphate to serine, threonine, or tyrosine residues on other proteins. This transfer may alter protein folding and function. In this way, protein kinases regulate cellular function. In the studies proposed here, a brain protein kinase that is activated by transient high calcium concentrations will be studied in the genetic organism, Drosophila melanogaster (the fruit fly). Mammalian genes for this enzyme have been sequenced. The genes encoding this important brain enzyme in the fly will be sequenced and mapped within the Drosophila genome. This approach will facilitate the generation of mutants in the kinase and will allow studies of the behavior of flies with mutant kinase genes. These studies will significantly advance our understanding of the basic molecular mechanisms that underlie information processing and storage in nervous systems.